Atoms in Tight Traps: Theory of Scattering in Restricted Geometries and Applications

Theoretical investigations into the effects of strong confining potentials on the interactions of cold atoms are studied using many-body Green's function techniques. The objective is to define the theory in terms of renormalized, two body scattering matrices which can be obtained from the interactions of free atoms.